Spatial Firing Patterns in the Rat Subicular Cortex

9601382 Sharp The hippocampal formation is a part of the brain known to be critically involved in learning and memory. Hippocampal damage in humans cause profound, nearly global amnesia for events which occur after the lesion. One type of ability affected is spatial, or navigational learning. Individuals with hippocampal damage cannot learn their way around in a new environment. Some insight into how the hippocampus may accomplish its role in spatial learning has come from studies which examine the physiological signals in the hippocampal formation as individuals navigate. One kind of spatial signal is the place, or locational cell rate, while there are other regions where the cell fires at lower rates, or is silent. Thus the cells provide an ongoing indication of the animal's current location. In the hippocampus proper, each new environment is coded using a different pattern of firing in these cells, so that each environment has its own unique "neural map". Recently, we have discovered a novel type of locational signal in a subregion of the hippocampal formation known as the subiculum. In the subiculum, each environment is represented using the same spatial signal. That is, the spatial pattern in one environment appears to be a rubber sheet transformation of the pattern in any other environment it appears that the subicular cells may each have a single, abstract, generic firing pattern which is transferred and shaped to fit into each new enclosure. Such a generic map could play a critical role in abstract spatial reasoning. Several manipulations are planned, in order to further characterize the subicular spatial signal. First, the initial work (above) has only examined cells when recorded in two subicular patterns can expand and/or contract when the overall environmental size changes, cells will be serially recorded in chambers which differ in total area. In addition, it is not clear how one environment is demarcated from another, by the s ubiculum. That is, how do the subicular cells "decide" to make a new replica of the one environmental area to another? To examine this issue, cells will be recorded as animals navigate through environments in which there are partial boundaries dividing one enclosure from another, to see what kinds of boundaries will cause the generation of a new replica of the map. Finally, the spatial and behavioral firing patterns of cells in brain regions which project messages onto the subiculum will be examined, in order to determine what could be the computational and sensory building blocks for the generic subicular maps. The results will be used, along with formal neural network models, to try to understand the role played by the hippocampal region in learning and memory generally.